Nonlinear Problems in Geometry

PROPOSAL DMS-0306197

PI: Joel Spruck, Johns Hopkins University

TITLE: NONLINEAR PROBLEMS IN GEOMETRY

Abstract

The principal investigator proposes to study a number of
problems in Differential and Riemannian geometry
that are related in that they may be described by, or have a
strong connection with, fully nonlinear elliptic equations
such as Monge-Ampere equations or mean curvature equations in
some novel way. These include extensions of the classical
sharp isoperimetric inequality to negatively curved
Riemannian manifolds, hypersurfaces of constant mean
curvature in hyperbolic space with prescribed boundary at
infinity and the optimal domain for the fundamental tone of
a clamped plate.

The aim of the Principal investigator is to develop fundamental
geometric and analytic methods to study highly nonlinear problems
that are of importance in several fields of pure and applied mathematics,
especially in Differential Geometry, image processing, optimal design,
magnetohydrodynamics and mathematical physics. These problems are
formulated in terms of highly nonlinear PDE's involving implicitly defined
functions of curvature (or dynamic curvature flows such as mean curvature
flow) and are often variational in nature involving free boundaries.